Improved Visualization System for Massively Parallel Computers

Research is proposed to investigate the efficacy of systolic compression/expansion (SEC) load balancing for scalable concurrent visualization systems (SCVS). The approach used is based on a Newtonian derivation for the equation of motion describing the message-passing flow between neighboring multicomputer computation elements. An assessment of graphical primitive quantum size representation for geometry, silicon process technology, and message-passing rates will lead to an effective metric for predicting the instantaneous load-balance, and systolically managing the update of SCVS display subsystem. The SCVS will be simulated via a physical concurrency emulation of the logically concurrent process structure required to implement a message-passing system for rendering graphical datasets in a shared-memory. This simulation will serve as the foundation for load balance monitoring studies based on a parametric test matrix of input conditions, such as user transformation rate, and geometric quanta size representation.